Gordon Conference: Magnesium in Physiological Processes and Medicine, February 7-12, 1999, in Ventura, California

9820758
Beyenbach
The Gordon Conference on Magnesium has met six times at three-year intervals since 1978. Although more is known about the role of magnesium in biochemical and physiological processes, there are still serious gaps in our understanding of magnesium physiology. There is paucity of information about a magnesium channel, magnesium homeostasis, and the possible existence of a magnesium hormone. Funds are requested to invite twelve young investigators who are new to the Gordon Conference on Magnesium.